Collaborative Research: Reconstruction of the eastern Bering ice-ocean system by variational assimilation of the BEST-BSIERP data

Funds are provided to achieve three major goals.
1. To synthesize data from the BEST-BSIERP coordinated programs in the Bering Sea and data from other sources, collected during the same time period (2007-2010), via modeling and data assimilation. Two joint data assimilation systems will be applied to reconstruct the physical oceanographic fields of the eastern Bering ice-ocean system. The first system will be configured to reconstruct the large-scale circulation in the eastern Bering Sea and to accurately describe the large-scale processes in the South Eastern Bering Sea Shelf. The second will be configured for the eastern Bering Sea Shelf and will explicitly resolve eddy and tidal dynamics, thus leading to a better understanding of the nonlinear interaction processes between the deep basin and the shelf region of the eastern Bering Sea.
2. To analyze the reconstructed fields and identify processes important for causing observed variability.
3. To determine the impact of assimilating data with different origins on the estimation of near-surface transports of volume, momentum, heat, and material. This will be accomplished through adjoint sensitivity analysis. Results will help optimize Bering Sea mooring observations in future studies.

The Bering Sea is the largest commercial and subsistence fishery of the United States. Management of this fishery in the face of ongoing climate variability requires an understanding of all the processes impacting the fishery. Amongst these are the changing water temperature, which influences the growth rate of fish, and the current field, which carries fish eggs and larvae from their spawning regions to their nursery grounds. This project will contribute to an understanding of how these fields change in response to other external forcing.